Defense Advanced Research Projects Agency (DARPA) Support of the National Center for Atmospheric Research Activities

This is a Cooperative Support Agreement to the NSF/UCAR Cooperative Agreement to support the National Center for Research funded by the Defense Advanced Research Projects Agency.